SGER: Developing Keys to AI Science

Proposal 0646959
"Developing Keys to AI Science"
PI: David Leake
American Association for Artificial Intelligence

ABSTRACT

The goals of the proposed work are (1) to analyze the field of artificial intelligence research to develop a framework for understanding key aspects of the science of artificial intelligence and its components, and (2) to use this analysis to design effective methods to disseminate key principles for outreach. This outreach will be aimed at educating faculty, students and others about the science of artificial intelligence, increasing their understanding of this important area of computer science, and spurring them to increase their knowledge of the field. The products of this project will be a poster and an accompanying Web site, serving as a bridge from the poster to relevant on-line resources and using the poster to place those resources in context.